Northwestnet

Access to remote facilities, data bases, supercomputing resources, and libraries and to distributed collaborators has become essential to research in a variety of disciplines and to science and engineering education at Portland State University. This proposal provides for this remote access by linking Portland State University to a midlevel network, NorthWestNet, with medium speed telecommunication lines (56,000 bits per second). NorthWestNet is connected to the NSFNET Backbone Network which in turn provides high speed access (1.5 million bits per second) to all NSF sponsored Supercomputer Centers and to other Regional Network Operation Centers. The gateway/routing equipment and the communication lines will be provided by the Western Interstate Council on Higher Education (WICHE) through a supplemental grant to their current award for the management of NorthWestNet. They will provide network information services and training as well as network operation and management services in linking Portland State to other universities on the midlevel backbone and to the NSFNET National Backbone Network. The university will provide necessary support and technical expertise for the operation and maintenance of the gateway node on campus as well as information services for the scientific users at the university.//